SSC: Young Engineers & Scientists (Y.E.S.) Summer Science Camp

The Y.E.S. Summer Science Camp is a six week commuter mathematics and science program along with a follow-up academic year program. The program serves two hundred and twenty-five seventh through ninth grade African-American, Hispanic and Native-American students over a three year period. The objectives of the program are to: 1) introduce students to science, engineering and mathematics concepts in a culturally relevant manner; 2) teach students how academic coursework relates to their futures; 3) show students how science, engineering and math relates to the world around them; and 4) help parents become better informed and actively involved in the education of their children. The program involves volunteer scientists and engineers from local industry and San Francisco State University. Program activities include: science, computer science, mathematics and communications courses, guests speakers, laboratory demonstrations/experiments, field trips and group research projects. During the academic year students participate in the existing MESA Program at their school site.